Mechanisms of Axon Sorting in the Zebrafish Visual System

Chi-Bin Chien

Lay Abstract
-------------------------
To form the correct circuitry in the developing nervous system,
billions of nerve cells must send their axons (individual nerve
fibers) over long distances to find their specific target cells. How
these axons find their targest is one of the fundamental questions of
developmental neuroscience. When many axons take similar pathways and
form a nerve bundle or axon tract, individual axons are often highly
organized within the larger tract. How such sorting within axon
tracts is achieved is a basic question of axon guidance that has been
studied very little.

In the visual system, retinal axons exit the eye and form the optic
nerve, where they are organized in a very precise array according to
their point of origin. Shortly after passing through the optic
chiasm, these retinal axons reorganize in a characteristic way, so
that they are sorted out according to a different order as they grow
through the optic tract on their way to visual centers in the brain.
This sorting of retinal axons in the optic tract allow the proper
formation of normal visual connections, and is therefore critical for
normal vision.

This project will study the mechanisms of axon sorting in the visual
system of the zebrafish, Danio rerio. The zebrafish visual system has
many fundamental similarities (both genetic and anatomical) to humans
and other vertebrates, and so the principles discovered here are
likely to have wide applicability. In a particular zebrafish mutant
strain, called boxer, a subset of the retinal axons fail to
reorganize normally within the optic tract. Thus, normal function of
the boxer gene is critical for normal development of the visual
system. The proposed experiments will analyze whether boxer function
is required in the eye or in the brain, and will clone boxer to
determine which mutated gene is responsible for the visual system
defect. These experiments will shed light on a critical aspect of how
the brain is properly wired during development.